SGER: Are Viruses a Significant Component of Dissolved DNA Marine Environment

The existence of dissolved DNA in the marine environment has been well documented. Recently, viruses have been shown to be an important biological component of the dissolved fraction of seawater.It is not known what proportion of the dissolved DNA is truly soluble DNA or DNA encapsulated within a virus particle. Differentiation and quantitation of the soluble DNA and the intact virions in the environment is important for both ecological and genetic reasons. From the ecological perspective, soluble DNA is a form of nucleic acid precursors for macromolecular biosynthesis. Viruses no doubt contribute to dissolved DNA and organic carbon production and control the microbial population by lysing their hosts. Dr. Paul will develop methods to separate and quantitate viral particles from free DNA in the water column. This study will lead to methodology for the rapid isolation of viruses for future study.